Ft. Monmouth Interaction: "Delta" Doped Layers in GaAs

This proposal concerns the initiation of a one-year collaborative research program between Rensselaer Polytechnic Institute and the U.S. Army Electronics Technology and Devices Laboratory in Fort Monmouth, New Jersey. The work will focus upon the growth of n-type "delta- doped" layers in GaAs by molecular beam epitaxy (MBE). It is intended that these layers approximate fixed charge sheets when depleted, so minimum thickness and maximum electrically active donor concentration are primary growth objectives. Although problems concerning material growth will receive primary emphasis, some simple electrical measurements are planned in order to anticipate future device applications, particularly the Bipolar Inversion-Channel FET (BICFET) and shallow ohmic contacts to n-GaAs.